Cost/Benefit Analysis of Anguillid Foraging Mode

Do animals forage in an "optimal" manner, one thatrepresents an evolved response in terms of the amount of energyspent compared to the amount of energy gained? Research hasgenerally focused on what animals eat, where they feed, and howthey decide to switch between food types or feeding locales. Anoverlooked and common feature of feeding involves animals thathave different ways of acquiring prey, such as different huntingtactics. An unanswered question is whether animals switchbetween feeding tactics in ways we would predict based onenergetic considerations. American eels either feed by suction,by grasping food and shaking to tear off a piece, or by graspingand spinning to tear off a piece. Hypotheses to be testedconcern whether switching among these three modes represents adecision.making process that maximizes energetic intake whileminimizing energetic expense and costs associated with attractingpredators. Results of this study will have broad application to areasof behavioral and ecological research, particularly those thatfocus on trade.offs and cost/benefit analyses of ecologicalactivities. Data will be useful to theoretical ecologistsinterested in decision rules and processes in animal behavior,and will aid in understanding the energetics of switching amongalternative foraging modes. Results will also provide insightinto selection pressures influencing the convergent evolutionthat occurs among the more than 60 different families of largelyunrelated, eel.like fishes, amphibians, and reptiles. The datawill also greatly increase our understanding of the feedingbehavior of the American eel, an abundant, commercially important(approx. 5,000,000 annually), predatory fish species that occursin most freshwater and estuarine habitats draining into theAtlantic Ocean and Gulf of Mexico.